Collaborative Research: A Design Methodology for Operational Flexibility

This grant provides funding for the creation of a methodology for modeling
and mathematical computation to quantify operational flexibility in service
and manufacturing supply chains. It emphasizes the flexibility attained
when sources of production (e.g., workers, machines, plants, etc.) are
multi-functional. Examples of this include workers with multiple skills,
machines with flexible or reconfigurable capabilities, and supply chains
with flexible sourcing and distribution options. By having multi-functional
servers (sources), capacity can be dynamically allocated in response to the
realization of uncertain demand. Taking queueing networks as models of the
production systems, approximate deterministic metrics of flexibility are
used to accurately predict the best design from various alternatives.
Mathematical programming, queueing theory, Markov Decision Processes, and
discrete event systems simulation are employed. The research illuminates
the connections between general queueing networks with flexible servers and
the properties found in approximate, deterministic network models.

If successful, the results of this research will lead to improvements in
the design of service and manufacturing operations and supply chains that
deliver high-performance efficiencies and service levels despite uncertain
changes in technology, heightened consumer expectations, decreased vertical
integration of the supply chain, and intensified global competition. The
primary objectives of this research are to (1) develop effective methods
for quantifying flexibility, (2) develop principles and methodology to
better select a roster of flexible workers for a shift (or work period)
that results in a robustly productive team, and (3) invent a methodology to
assist in the design of robust multi-echelon supply chains. The anticipated
results of this research are: (1) managerial insights that deepen the
understanding of how to design production systems and worker/staffing
schedules that are truly flexible and robust and (2) tractable
analytical/numerical models and methods for the analysis and design of
multi-echelon supply chains. Upon implementation, the results will help
ordinary people through increased quality of service in everyday
transactions, workers through increased career development and training,
and businesses through improved management practices and competitive
operations.